Crustal and Upper Mantle Velocity Structure Along the Trans-Alaska Crustal Transect Using Inversion of TeleseismicReceiver Functions

This research is to determine the velocity structure at points along the TACT (Trans-Alaska Crustal Transect) reflection/ refraction profile, using the technique of time domain inversion of teleseismic receiver functions. The first stage will be to use existing data from DWWSSN station COL to determine the velocity structure beneath the Fairbanks area, which lies in the Tanana-Yukon terrane and near the transect line. The next stage will be to establish at least 5 seismic stations along the TACT line between Fairbanks and Valdez, Alaska. These stations, which will utilize State of Alaska microwave facilities, will collect teleseismic data through the winter of 1990-91 (6-7 months) which can then be inverted for the velocity structure beneath the individual stations.